MEET - SWT (Manufacturing Engineering and Engineering Technology at SWT)

This project outlines a solution to a two-fold problem in Texas. The two-fold pieces of
this problem are: 1) the productivity of the flourishing high technology economy in the
state of Texas is being negatively impacted by the severe lack of well-educated
engineering professionals; and, 2) a significantly large human resources, particularly
minorities living in the state, do not participate in the development of the high
technology industry. Consequently, economic prosperity bypasses this group. Therefore,
what is needed is some economically feasible funding source that allows all Texas state
residents to gain employment in the high technology industry. Hence, the scholarships
afforded through this grant are assisting in alleviating this dual dilemma. The MEET-SWT
project management plan is providing a system of prudent strategies for recruiting, retaining
and ultimately graduating traditionally underrepresented individuals. These graduates enter
into and to become productive members of the Texas high technology workforce. The
Department of Technology at SWT is optimistic about the opportunity that this scholarship
program is having in promoting education and career opportunities in engineering and
engineering technology for all Texas state residents.